Mappings with Little Smoothness

Proposal Number: DMS-0200566
PI: Mario Bonk

ABSTRACT

The investigation of non-smooth phenomena is one of the
main subjects of contemporary Geometric Function Theory.
The purpose of this project is to study metric structures
on spaces and appropriate nonsmooth classes of mappings
between these spaces such as bilipschitz, quasisymmetric,
quasiconformal, and quasiregular mappings. Many basic
questions in this area are open. For example, a
satisfactory characterization of two-dimensional metric
spheres that are quasisymmetric to the standard
two-dimensional sphere is unknown. This problem is relevant
in connection to Thurston's hyperbolization conjecture.
Progress in the field relies on a combination of
geometric and analytic methods that were recently
established in the analysis of metric spaces.

The particular question of how to map surfaces has a
long history. Cartography aims to preserve particular
features of a surface under suitable mappings. This
has lead to major mathematical developments. In the
nineteenth century basic problems of surveying and
geodesy motivated Gauss to build up a systematic theory
of curved surfaces which laid the foundation of modern
differential geometry. For the investigation of wrinkled
and fractal objects new mathematical tools are
required. A clear understanding of the mathematical
concepts for describing nonsmooth phenomena will benefit
research in other areas and lead to practical applications.
For example, methods for attacking the theoretical
questions of quasiconformal parametrizations of spheres
were also used for finding algorithms for mapping the
surface of the human brain. One of the aims of the project
is to involve graduate students in this promising and
important area of mathematical research.